International Travel to Attend the International Symposium on Gas Separation Technology in Antwerp, Belgium

This award provides funds for international travel for Professor Orville C. Sandall to attend the "International Symposium on Gas Separation Technology" in Antwerp, Belgium (September 10-15, 1989). The awardee will also visit the research laboratories of Professor Blauwhoff at the University of Twente and Royal Dutch Shell in Amsterdam (Netherlands). Researchers from these laboratories have worked in the University of California, Santa Barbara laboratory of Professor Sandall.